Computational Modeling of Cardiac Electrical Response

Cardiac arrhythmias such as ventricular fibrillation are a major cause of morbidity and mortality in the United States. In this IGMS project, PI Greg Buzzard will spend a year working with scientists at Gene Network Sciences and Cornell University to develop computational models of heart cells and heart tissue. He will work in conjunction with these scientists to implement and refine a model of a single heart cell using experimental data collected at Cornell University, to couple models of single cells in order to model heart tissue, to use this model of heart tissue to study the mechanisms underlying ventricular fibrillation, and to explore possible new approaches to the numerical simulation of these models. Moreover, Buzzard will develop a strong set of skills in biological modeling that will enable him to continue this collaboration beyond the period of the grant and to take part in other interdisciplinary projects.

This IGMS project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).